Field Research Laboratory at Cedar Point Biological Station

The Cedar Point Biological Station is operated by the University of Nebraska for grassland research. The Station is adjacent to mixed prairie, sandhills prairie, sand-sage prairie, and short grass prairie, and adjoins a reservoir on the North Platte River. Several hybrid zones occur in this area of habitat transition. Dr. Anthony Joern, Director of the Station, plans construction of a research laboratory building in which biochemical analyses can be conducted. This building would replace an 11-year old trailer, and would expand the analytical activities at the site. Cedar Point is well-supported by the University of Nebraska, and the Station is facilitating research by a rapidly growing number of investigators. The Station has established important research collaborations with the NSF-supported Long-Term Ecological Research Site at Kansas State University, and the new laboratory building is essential to the analyses involved in this research. Prairie-based research is important to agriculture and to our understanding of global change and biodiversity. The proposed lab construction will enhance research in both of these areas.